Collaborative Research in Computational Neuroscience (CRCNS) 2010 Principal Investigator's Meeting in Baltimore

The PIs and Co-PIs of grants supported through the NSF-NIH Collaborative Research in Computational Neuroscience (CRCNS) program meet annually. This will be the sixth meeting of CRCNS investigators. The meeting brings together a broad spectrum of computational neuroscience researchers supported by the program, and includes poster presentations, talks and plenary lectures. The meeting is scheduled for June 6-8, 2010 and will be held at Johns Hopkins University.